The GENIQUEST (GENomics Inquiry through QUantitative Trait Loci Exploration with SAIL Technology): Bringing STEM Data to High School Classrooms

The Maine Mathematics and Science Alliance, the Concord Consortium, and Jackson Laboratories are collaborating to develop and test a website, software application, and supplemental instructional materials that use publicly accessible genomics data to foster scientific inquiry among high schools students. The goals of GENIQUEST project are to (1) develop and test software that enables advanced high school students to import, manipulate, and analyze genomics data, (2) increase students' knowledge of biology, data analysis, the nature of science, and computational biology, (3) improve secondary teachers' access to cutting-edge databases, and (4) determine the viability of using online scientific databases for engaging secondary students and teachers in scientific inquiry. Outcomes for students and teachers include developing knowledge, skills, and understandings related to genetic inheritance, data investigation and analysis, the process of scientific inquiry, and collaboration.